Metric Differential Geometry and Mathematical Gravity

Abstract

Award: DMS-0405906
Principal Investigator: Gregory J. Galloway

Recent developments in gravitational theory, both theoretical and
empirical, have lead to an increased interest in the study of
asymptotically anti-de Sitter and asymptotically de Sitter
spacetimes. In this project, techniques of Lorentzian and
Riemannian geometry will be used to attack certain problems
pertaining to such spacetimes, as well as some problems
concerning new developments in the theory of black holes. One of
the specific aims of this project is to continue development of
an approach to establishing positivity of mass for asymptotically
hyperbolic Riemannian manifolds (with spherical conformal
infinity) which does not require spin assumption. This approach,
which makes use of the brane action introduced by Witten and Yau
in their work on the AdS/CFT correspondence, may also be useful
in settling some positive mass conjectures for asymptotically
anti-de Sitter spacetimes with toroidal topology at infinity. The
PI also plans to continue investigations into uniqueness and
rigidity phenomena, and the development of singularities in
asymptotically de Sitter spacetimes. The classical definition of
a black hole, though mathematically elegant, is problematic in
practice (especially for numerical studies) in that it requires
knowing the full future evolution of spacetime all the way to
infinity. As an alternative, Ashtekar and Krishnan have
introduced a new, fully nonlinear and dynamical, approach to the
study of black holes, based on the quasi-local notion of a
dynamical horizon. Another aim of this project is to investigate
some open problems concerning the occurence, i.e., existence,
uniqueness and position of dynamical horizons.

Modern theories of gravity are geometrical in nature. The
gravitational field and other fields, black holes and related
objects, may be described and analyzed using geometric methods.
In more general terms, this project is concerned with the study
of certain features of gravity of current scientific interest
from this geometric point of view, utilizing the tools of
Riemannian geometry, a mathematical theory of space, and
Lorentzian geometry, a mathematical theory of spacetime. These
theories provide a method for studying the relationship among
three fundamental aspects of the spacetime universe: curvature
(i.e., the bending of space or spacetime), topology (i.e., the
global shape and complexity of space or spacetime) and causal
structure (i.e., the large scale behavior of light rays and
light cones).